Few-Hadron Reactions from QCD

Quantum Chromodynamics (QCD) is the fundamental theory of the strong interaction, the force that binds quarks and gluons into protons, neutrons, and other particles called hadrons. Yet connecting QCD directly to the properties of hadrons remains a major challenge in nuclear physics because, at the energies where hadrons form, the interactions among quarks and gluons are too strong for simple approximation methods, and few-body dynamics play a central role in how hadrons interact and decay. This project will combine large-scale computational QCD calculations with modern reaction theory to determine how hadrons interact and form short-lived excited states called resonances. These calculations will help explain the observed pattern of hadrons and provide theory needed to interpret experiments at Jefferson Lab and the future Electron-Ion Collider. The project will also produce reusable analysis tools for the physics community and train graduate students and early-career researchers in theoretical physics, high-performance computing, data analysis, and scientific communication.

The research combines lattice QCD calculations of few-hadron finite-volume spectra with reaction theory frameworks that convert those quantities into infinite-volume scattering and transition amplitudes. The program will develop and apply finite-volume methods for reactions involving two and three hadrons, including coupled-channel systems, particles with spin, and processes coupled to external electroweak currents. New theoretical tools will be developed for systems in which two- and three-hadron channels are coupled. Applications will include three-body pion and kaon systems, meson-baryon scattering, and the omega resonance at near-physical pion mass. The resulting amplitudes will be used to determine resonance masses, widths, couplings, and form factors from QCD and provide theoretical support for amplitude analyses at the CLAS12 and GlueX experiments at Jefferson Lab, as well as the future Electron-Ion Collider. The work will use large-scale high-performance computing and build reusable analysis codes for lattice QCD, phenomenology, and experimental communities.